Muscle Morphology and Physiology of Overwintering Black Bears

9514105 Harlow Disuse atrophy of skeletal muscle is a problem faced by inactive animals whether it be hospital patients, astronauts in a space vehicle or constrained animals during winter dormancy. Muscle disuse atrophy results from a decrease in muscle mass due to a reduction in the number of fibers, a decrease in the size of the cells or a combination of the two. Since the hibernating black bears show little protein loss during winter inactivity and are thus an excellent model for investigating how some animals avoid muscle disuse atrophy, the PI plans to study the mechanism involved in the intracellular and extracellular protein changes. The PI will also determine if lactation laces a greater demand on muscle protein degradation. These studies will also determine how much fat (for energy) and protein (for water) are required by overwintering bears and what the lactation demands are on fat and muscle tissues in order to properly evaluate the bear as a muscle conserver during periods of inactivity.